Northern Nevada Community College Connection to NevadaNet

The University of Nevada System is establishing a connection to NSFNET via a 19,200 bits per second line for the Northern Nevada Community College through the NevadaNet state network. The connection enhances access by students and faculty to libraries and other remote facilities throughout the internet. This award funds part of the costs for two years.***//